Unemployment Dynamics in Czechoslovakia During the Transition

This study undertakes a rigorous analysis of unemployment dynamics in the transition from central planning to a market economy. As unemployment rises rapidly in all the transforming economies, the issues of the determinants of unemployment and the optimal policies to cope with the explosive situation have come to the forefront of the public policy debate. The project makes two major contributions toward these issues. First, it uses unique Czechoslovak data and combines traditional with frontier statistical analysis to examine three sets of important research questions. The first set relates to the origins and incidence of unemployment. What are the characteristics of the unemployed? Are certain types of workers (e.g., older, female or poorly educated workers) at greater risk of being laid off than others? The second set of questions focuses on identifying the determinants of the duration of unemployment spells. In this context, the study examines how unemployment duration varies with enterprise characteristics, individuals' demographic and regional characteristics, changing demand conditions, and changes in important elements of the unemployment insurance system. The third set is concerned with estimating and explaining variations in the transition rates out of unemployment to other states (in or out of the labor market). For example, what is the probability that a worker with certain characteristics and who was previously employed in a given sector will leave unemployment for the small scale private sector or for training, etc.? Unlike many previous studies of unemployment, this project relates the incidence and duration of unemployment to firm specific characteristics. The second contribution of the study consists of developing, in conjunction with the Czech and Slovak Ministries of Labor and Social Affairs and the Federal Statistical Office, sampling schemes and estimation methods for further analysis of the inflow to unemployment. The main question to be addressed is how the large public and newly privatized firms make their layoff decisions. Moreover, the new data set would allow for the estimation of the transition rates from employment to unemployment. The major scientific value of the proposal stems from its ability to collect and analyze informative data sets related to one of the most important economic phenomena in this century. The dramatic changes in the Central and East European economies in this period provide us with much greater variation in the explanatory variables than has been witnessed in any middle income or advanced economy. The study will hence be able to capture major behavioral patterns and contribute significantly to our understanding of the dynamics of labor markets moving towards an equilibrium during the transition.